Theory of Atomic Collisions

A recently developed theory for the correlated motion of three charged particles will be applied to electron impact ionization of H, electron capture in positron-H collisions and ionization in anti-proton atomic hydrogen. The theory will be extended to treat the interaction of three neutral particles, a subject of importance in cold collisions.